Supporting Oceanographic Research Missions Aboard Academic Research Fleet Vessels

This project supports shared-use oceanographic technical services that enable scientific operations aboard vessels of the U.S. Academic Research Fleet. These technical services help maintain reliable access to scientific instrumentation and high-quality oceanographic observations needed to study ocean circulation, marine ecosystems, coastal processes, seafloor environments, and other ocean systems. The project strengthens shared research infrastructure across the fleet while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, environmental prediction, coastal resilience, and stewardship of marine resources.

The project provides technical expertise, maintenance, calibration, operation, and logistical support for shared-use scientific instrumentation utilized aboard Academic Research Fleet vessels. Technical personnel support scientific missions through instrument preparation, deployment support, data collection assistance, troubleshooting, and maintenance of observational systems used by researchers from institutions throughout the United States. These activities help maintain the technical infrastructure necessary to support a broad range of oceanographic research conducted aboard fleet vessels and ensure continued access to reliable scientific capabilities and high-quality observational data for the research community.